The History and Fate of the Big Bang Model : A Case Study of the Interactions Between Observation, Theory and Metaphysical Principles

Cosmology came of age as a science during the 20th century because of the structuring of cosmological observation and theory around the Big Bang model of an expanding, evolving universe. Yet even though Big Bang Cosmology was undeniably scientific, it was scientific in a special way: Theory was always much richer than its empirical base. Hence, finding theoretical problems which interacted crucially with the limited data set was a difficult and delicate problem. In many instances, cosmologists found themselves forced to rely upon very general metaphysical principles, principles such as "The Uniformity of Nature," "Causality," and "Simplicity," as decision criteria in the selection among competing problem solutions. Indeed, it can be argued that it was precisely these sorts of principles which opened the way for today's inflationary cosmologies. Big Bang cosmology offers a rich source for historians and philosophers of science interested in the dynamical interplay between empirical, theoretical and philosophical forces during the birth and development of a major scientific research programme. Professors Gale and Urani hope to examine under this study the dynamical interplay of these forces.